Sequencing DNA with the Atomic Force Microscope

This is a proposal to develop the DNA sequencing technology using the atomic force microscope (AFM). AFM can image surfaces at submolecular resolution by scanning a sharp tip over the surface, and under favorable conditions, and has resolved individual nucleotides of DNA. In this project, feasibility studies will be carried out to determine if, in fact, reliable methods could be developed for AFM to actually sequence DNA molecules. If successful, the new method could allow DNA sequencing at least 100 times faster than the currently available technology.